Problems in Quaternionic Geometry with Applications

Abstract

Award: DMS-0604775
Principal Investigator: Tamas Hausel

This proposal aims to understand the global analysis, geometry,
topology and arithmetic of complete hyperkaehler manifolds of
non-compact type and find exciting applications in other fields
of mathematics and physics, where these manifolds naturally
appear. The proposed research has therefore two main aspects:
studying fundamental questions for non-compact hyperkaehler
manifolds, such as Hodge theory and the Atiyah-Singer index
theorem, and applying these methods in other fields. The
hyperkaehler spaces appearing in this proposal include: moduli
spaces of Yang-Mills instantons on asymptotically locally
Euclidean gravitational instantons; more generally Nakajima's
quiver varieties; toric hyperkaehler varieties; moduli spaces of
magnetic monopoles on R^3; moduli spaces of Higgs bundles on a
Riemann surface; and more generally hyperkaehler spaces appearing
in the non-Abelian Hodge theory of a curve (like moduli of flat
GL(n,C)-connections and character varieties) and in the Geometric
Langlands Program. The fields of applications include:
combinatorics, representation theory, finite group theory, low
dimensional topology, number theory, mathematical physics and
string theory.

What is common in (1) the existence of a magnet with a single
pole (2) the reliability of computer networks and (3) code theory
and code breaking? My research provides an answer: these
scientific problems can all be attacked using quaternionic
geometry. Quaternions are four dimensional analogues of complex
numbers. For problem (1) one can study magnetic monopoles using
quaternionic equations. The possible existence of these and
similar elementary particles could lead to new energy sources.
For (2) the proposed research shows that the number of holes on a
certain quaternionic surface attached to a graph agrees with the
reliability polynomial of a computer network based on the
graph. Qualitative properties of this reliability polynomial,
obtained from the study of the geometry of quaternionic surfaces,
help explain how to make computer networks, like the internet,
more reliable. In (3) arithmetic study of certain quaternionic
surfaces sheds light on the representation theory of finite
groups of Lie type, which are used in various schemes in code
theory. Information emerging from the geometry of these
quaternionic surfaces, could help devise better codes. In short,
my research is two-folded, first it studies fundamental problems
in quaternionic geometry, and second it breaths life into these
investigations by applying the results to other fields in
mathematics and physics. This yields a colourful palette of
various fields in mathematics and physics all related in one way
or another to quaternionic geometry.